Mathematical Sciences: Riccati Equations and Energy Decay Rates in Boundary Control Theory for Partial Differential Equations

The principal investigators will study problems of stabilization and optimal control of linear partial differential equations. These problems are physically meaningful and are mathematically relevant. They also will examine extensions of existing stabilization results to cover mildly nonlinear systems. Control theory deals with the theoretical aspects of understanding how complex systems modelled as algebraic or differential systems learn about its environment, process the information to reduce uncertainty, plan, generate and execute control actions. It has played a major role in many areas of science and engineering.